ROW: Oxygen and Hydrogen Isotope Systematics of Mylonites

This proposal aims to investigate fossil fluid-rock interactions in three major shear zones which range from fluid- rich to fluid-starved conditions. Combined isotopic and petrographic studies will be used to construct a model of fluid movement within crustal shear zones. In particular, micro- sampling of mineral components in the altered rocks will be combined with laser microprobe techniques to characterize fine- scale isotopic variations with respect to alteration zones and deformation structures. Close collaboration with Dr. J. R. O'Neil (U. Michigan) will introduce the PI to the laser microprobe technology and hydrogen isotope geochemistry which will allow transferral of this technology to her home institution (as per ROW objectives). Additional collaboration with Dr. A. K. Sinha (VPI) and Dr. Carol Simpson (John Hopkins Univ.) will facilitate integration of the stable isotopic work with radiogenic isotope and structural data. Together, these lines of research are intended to provide constraints on timing of fluid flow and extent of interaction with rock-forming minerals.